Support for a Foundation-Wide Program providing ProfessionalOpportunities for Women in Research and Education

Quinn 9807033 This task order provides technical and administrative support for processing proposals received in the Foundation-wide Project, Professional Opportunities for Women in Research and Education. Activities include initial data-entry, spreadsheet preparation and jacket preparation for proposals received by the 9 December deadline. Initial data entry will include assembly of proposal jackets, entry of data onto the NSF mainframe system, and mailing of acknowledge cards and attachments.